Mathematical Sciences: Sums of Powers of Linear Forms

This project is concerned with research on extremal forms. The principal investigator will study sums of d-th powers of linear forms over the fields of real and complex numbers as well as situations when positive semi-definite forms need not be sums of squares of forms. This research concerns the study of real positive semi- definite forms. It involves interplay among algebra, inequalities and geometry.